Support For International Federation of Automatic Control (IFAC) Symposium on Dynamics and Control of Process Systems (DYCOPS-7); July 5-7, 2004; Cambridge, MA

Intellectual Merit The foci of this conference are in the latest research areas in chemical process dynamics
and control. These include new applications of process control throughout the many
industries that involve chemical processes and products, including biochemical and
materials processing; the development of new sensors; the development of new
techniques that integrate process design and scheduling with control; new methods for
performance monitoring; and new methods for modeling and identification. Like past conferences, DYCOPS-7 is expected to catalyze the expansion of process
dynamics and control applications in the manufacture of specialty chemicals using batch
processes, in biochemical and biomedical applications, and in improved design strategies
to achieve more controllable processes, among many other areas.

Broad Impact

The DYCOPS-7 symposium should have a broad impact due to three key factors. First,
over 160 outstanding researchers in process dynamics and control will be participating
from a broad array of countries worldwide. The advances reported by the plenary
speakers and individual researchers are intended to significantly advance the operability
and safety of chemical plants, increasing their productivity and profitability while
protecting against the increased threat of terrorism. Second, the symposium will enable
researchers in the United States to benefit from the experiences of colleagues worldwide,
many of whom are involved in operating world-class chemical plants in developing
countries. Third, the symposium will bring together outstanding young graduate student
researchers from the United States, many of whom will present the results of their
research for the first time at a technical conference. These young researchers should
return to their doctoral research studies with increased motivation and new ideas based
upon interactions with their new colleagues.